Research Initiation Award: One-Dimensional and Multi- Dimensional Stress-State Analyses of Wetting-Induced Collapse in Unsaturated Soils

This research will investigate the mechanism of wetting induced collapse in unsaturated soils. Certain soils stable in the dry or partially dry state, collapse when sufficient water is added. A better understanding of this phenomenon could allow better prediction of the stability and settlement performance of embankments and foundations.